A New Paradigm for Computing Discrete Adjoint Sensitivities Based on Operator-Overloading and Its Application to Aerodynamic Design

The design and development of future wind turbines, aircraft, and turbomachinery requires extensive use of computational fluid dynamic (CFD) analyses to model and understand complex fluid phenomena. However, these analyses alone do not provide insight into how current and future designs can be optimized. Complementary to CFD analyses is another computational method called adjoint computation. High-fidelity adjoint computations provide exciting potential for aerodynamic optimization, but widespread use of such methods is hindered due to the significant time required for hand-coding adjoint solvers and the substantially cumbersome debugging process needed to adopt existing automated approaches. Therefore, the principal aim of this project is to develop fully automated adjoint sensitivity analysis techniques that are not only computationally and memory efficient but also able to be readily integrated into existing CFD solvers. Successfully completing this project will significantly advance the state-of-the-art in aerodynamic design optimization and enable the next generation of aerospace innovation. This project will incorporate several outreach and educational activities, including a new project-based graduate course, a training program for faculty and engineering professionals interested in this technology, and hands-on workshops to pre-service science teachers to facilitate the use of related activities in the classroom.

The overall goal of this project is to introduce a new approach for adjoint sensitivity analysis. This new paradigm will employ operator overloading (OO), a capability offered by object-oriented programming, to automatically compute the sensitivity of any objective function to all design variables (potentially thousands). Unlike the traditional use of OO in adjoint computations, which requires the storage of any intermediate variable in the iterative process, thereby exponentially increasing the memory needed, this method will take advantage of the repetitiveness of the iterative process to minimize the memory footprint. More specifically, the efforts will focus on (i) developing a novel and efficient CFD-based approach to calculate steady, time-periodic, time-accurate adjoint sensitivities; (ii) coupling this novel technique to a reduced-order-model-based acceleration technique to further speed up adjoint computations; (iii) applying the new technique to relevant problems including optimizing wind turbine shape and designing new natural-laminar flow airfoils. These activities will directly contribute to the fundamental understanding of how complex flow features affect design and performance of future aircraft engines, as well as aircraft wings and wind turbine blades.